Acquisition of Storm Phosphorimager for Study of Gene Expression

A Molecular Dynamics Storm PhosphorImager system will be used for the study of molecular chaperone gene expression and regulation in prokaryotic systems. The Molecular Dynamics Storm system is approximately ten times more sensitive than X-ray film and has 2.5 times the dynamic range. These properties and the data analysis software provided will allow for easy, fast, and accurate quantitation of data. This makes the Storm system an essential tool for looking at low levels of expression and accurate quantitation of labeled oligonucleotides for determining the dissociation constants for protein-DNA binding. The Storm system is amenable to the detection of radioactive isotopes and to chemifluorescence thus providing a non-radioactive option for students doing research while reducing radioactive isotope storage and disposal problems.

The research will focus on characterizing the regulation of gene expression of the groESL and dnaKJ operons in Clostridium perfringens and Rhodobacter sphaeroides. The groESL and dnaKJ operons encode molecular chaperones that are conserved in prokaryotic and eukaryotic organisms and play a critical role in the folding of proteins in cells. In C. perfringens, a food-borne pathogen, the research will combine the study of gene expression with the analysis of regulatory sequences and structural investigations of the protein-DNA complexes involved in regulation. By understanding the regulatory mechanisms of these systems it may be possible to design therapeutic compounds that inhibit the expression of these critical molecular chaperone proteins. The regulation of the molecular chaperone genes in R. sphaeroides is also of interest due to the different regulatory sequences present in the groESL and dnaKJ operons. This differential expression is unusual and may serve an important comparison model to the regulatory mechanisms of other bacteria. The combination of genetic and biochemical approaches to understand the regulatory mechanism of gene expression will complement each other and promote scientific research in both departments.

SUNY Fredonia is a primarily undergraduate institution with small master programs in Biology and Chemistry. The Chemistry and Biology Departments jointly administer a new Biochemistry program, started in 1999, for which Drs. Fountain and Lee are the primary professors. The Biology department also administers a Recombinant Gene Technology major. These programs serve a number of students that are interested in pursuing research in biochemistry and molecular biology. Undergraduate students are encouraged to participate in independent research and will collaborate on projects utilizing the Storm system. The departments of Biology and Chemistry emphasize the integration of teaching and research in the two programs. The Storm system will be utilized in upper divisional Biochemistry and Recombinant Gene Technology laboratories to provide training for students. This will provide unique opportunities for undergraduate students to utilize state of the art equipment. The Storm PhosphorImager will allow for a study of the roles of molecular chaperones and the regulation of their expression in C. perfringens and R. sphaeroides. It will also provide undergraduate student researchers the opportunities to participate in molecular and biochemical research projects using state of the art equipment.